Conference: CI PAOS: FAIROS PI Workshop

NSF FAIROS projects work to build and enhance coordination of researchers and other stakeholders advancing Findable, Accessible, Interoperable, and Reusable (FAIR) data principles, Open Science (OS) practices, and research data management (RDM) capabilities across distributed research communities of practice. The awards span a wide range of disciplines and stages in the date lifecycle. To broaden project impacts and enhance future directions, this workshop will allow FAIROS projects to work together to both evaluate successes and identify gaps in sustained efforts in FAIR, Open Science, and RDM activities across the US Science research landscape.